Structure of Inorganic Network Glasses

9870246 Zwanziger Two glass families with important non-linear optical properties will be studied, using a suite of structural probes. The goal of the project is to correlate the structural features in the glasses with the non-linear optical response, so that the optical properties may be understood and tuned to desired values. Glasses and glass-ceramics composed of tellurium dioxide and a transition metal oxide co-glass-former will be made, and studied with nuclear magnetic resonance (NMR), neutron diffraction, and x-ray diffraction. Oxides of the group VB elements vanadium and niobium will be used as co-former, in order to understand the second order non-linear optical properties observed in telluriteniobate glass ceramics. These structures will be investigated using oxygen, vanadium, and niobium NMR, as well as diffraction techniques. The resulting structures will be correlated with the second order optical properties. The second glass system studied will be germanium sulfide, modified with phosphorus or gallium. These materials show strong third order optical non-linearity, and are of interest for photonics applications. Various design compromises must be made in their application, however, stemming principally from their thermal behavior and optical absorption. Their local structural features will be studied with phosphorus and gallium NMR, diffraction methods, and Raman spectroscopy. and the resulting features correlated with both the non-linear optical properties and the thermal properties. It is conjectured that symmetric local structures, such as rings and homopolar bonds, are significant in inducing a slow nuclear response in the optical non-linearity. This hypothesis will be tested by comparing the non-linear behavior with the local structures found from the NMR and diffraction data. In support of the above two areas, new experimental probes of materials structure will be developed. In particular new NMR experiments expressly designed to reveal spatial correlations between atoms in disordered solids will be implemented. Furthermore, the results of these experiments will be incorporated with those from diffraction-based measurements to generate large real-space models of the material structure. From these models not only individual structural elements but also their frequency and distribution in space will be inferred. %%% Glass and optical science will be enriched through the knowledge created about which structures are stable in complex oxide and chalcogenide glasses, and how these structures affect the optical properties of the materials. Moreover, the creation of new non-linear optical materials for applications such as photonics could be of great economic benefit to society, via the creation of faster computers and communications networks. ***